Low-Freguency Noise in Solid State Devices

This is a study of low-frequency noise in solid state devices such as Bipolar Junction Transistors (BJTs), Heterojunction Bipolar Junction Transistors (HBJTs), MESFETs, MODFETs, MOSFETs and Permeable Base Transistors (PBTs) in the frequency range 10 Hz - 890 MHz and the temperature range 300 - 10 K. The aim is to study frequency, bias, and temperature dependence of the noise to unravel the low-frequency noise processes present. Freeze-out effects will be studied. In BJTs and HBJTs, possible correlation effects between base and collector noise and the nature of burst noise and its possible correlation with 1/f noise will be considered.